Postdoctoral Research Fellowships in Chemistry

Dr. Vincent Rotello has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Rotello's doctoral degree was from Yale University under the supervision of Professor Harry Wasserman. Dr. Rotello intends to continue research at the Massachusetts Institute of Technology under the sponsorship of Professor Julius Rebek. Dr. Rotello's area of postdoctoral research and training will be molecular recognition and macromolecular catalysis. He will design molecular cleft hosts bound to flexible peptide fragments to maximize host-guest binding. These systems will serve as models for enzyme-substrate and antibody-hapten recognition. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of recent Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.